Interdisciplinary Knowledge Engineering Laboratory

The development of this interdisciplinary knowledge engineering laboratory for undergraduate students at Luther College fills a role for the Department of Computer Science as it relates to the needs of a liberal arts college. The laboratory provides hardware and software support for the study and construction of expert systems in both traditional and nontraditional application domains. The resulting environment provides an arena in which computer science students work directly with students majoring in other disciplines on joint projects. Students are encouraged to work both independently and in knowledge engineering teams under the direction of an interdisciplinary faculty steering committee. The laboratory takes advantage of the strong interdisciplinary interests of the students who attend Luther College and provides computer science students with an opportunity to interact with students from other disciplines.